Computational Biology Predoctoral Training Program

This award to a group of 27 Faculty will provide positions for 5 graduate students in a new computational biology training program at the Center for Computational Biology established jointly by three institutions (Rice University, Baylor College of Medicine and the University of Houston). The faculty come from Departments of Cell Biology, Biochemistry, Chemistry, Computer Science, Statistics and Electrical Engineering. A few also participate in the STC for Research on Parallel Computation at Rice University. The training program will emphasize visualization, algorithm development and advanced computation in biology, biochemistry and biophysics. Also included are courses offered by the individual institutions, a course taught jointly by faculty from all three, and a Center-sponsored seminar series. The award includes funds to be used to aid in recruiting and to promote student participation in meetings & workshops.